U.S.-China Cooperative Research: Attempt to Genetically Alter Citrus for Resistance to Xanthomonas

9422059 Gabriel Support is provided for a collaborative proposal between Dean Gabriel, University of Florida, and Deng Xiuxin, Huazhong Agricultural University, Wuhan, China, on genetic transformation of citrus for resistance to Xanthomonas, a major cause of disease in citrus. The research proposed contains innovative ideas to combat a serious disease of citrus. There will be a two way exchange of biotechnology: research training in molecular cloning from the US, and citrus tissue culture expertise from China. Through the cooperation of Chinese and US laboratories working on this important problem, both practical knowledge important for a major US and Chinese crop, and fundamental knowledge in plant biotechnology will be advanced. The genetic work on manipulation of bacteria will be done in Florida and complementary work including bioassays and field- testing of the genetically altered citrus lines will be conducted in China. The international cooperation is essential to the success of the project, providing complementary expertise and opportunities for field testing not available in the United States. Support is recommended. Alice Hogan